Spatial and Temporal Reasoning about Machines

The objective of this project is to develop an algorithm for deriving concise behavioral descriptions of machine behavior from machine structure. Past work has led to a simulator that can analyze a wide variety of mechanisms kinematically, and simulate many of them to see what they will do. The simulator will be generalized, and used to run a loop analyzer that posits and tests regularities in behavior in order to produce hypotheses about what the mechanism will do indefinitely far into the future.